Career Access Opportunities for Impoverished Minority Children and Their Mothers

This proposal represents a pilot program for testing methods of encouraging interest in scientific careers in minority children and their mothers. Two weekly biological science programs, one for children, the other for mothers, are being held at the University of Hartford for three groups of Hartford inner- city residents: public school third and fourth graders attending alone; mothers of third and fourth graders attending alone; third and fourth graders attending with their mothers. The effectiveness of these three approaches in improving attitudes toward science, scientific careers, and achievement in the children and in their mothers, and also in encouraging a desire in the mothers to seek further education and/or scientific employment is being compared. The content of the program is focused on physiology, anatomy, nutrition, and, for the children's program, experimentation. Guest speakers who serve as role models for various scientific careers are included.